Electrochemical Research and Engineering with Bacterial Redox Enzymes

The proposed research will investigate highly specific and selective electrosynthesis of organic compounds under mild reaction conditions using immobilized enzyme-cofactor electrodes. This process shows promise to provide a new class of biosensors and to provide for large-scale, energy efficient manufacturing of organic chemicals and pharmaceuticals. The approach is to develop a series of cytochrome P450 enzyme systems that will provide useful reactions of synthetic value through an electrochemical process.